Teaching the Art of Modeling in Engineering Using a ComputerAided, Phenomena-Based Modeling Language

9355832 Foss A computer-aided modeling environment is to be developed and integrated into the educational scope of the core undergraduate chemical engineering curriculum. Through this environment, a structured set of steps, needed by students learning how to model physical and chemical process behavior, is coordinated with an interactive modeling language that is designed to provide instantaneous feedback to the students on the consistency, completeness, and reasonableness of their model. The modeling language coordinates the terms describing the physical and chemical phenomena, declared by the student as important to the content of the model, and composes the mathematical relationships that form the expression of the resulting model. Numerical algorithms are then employed to produce through interactive simulation the static or/and dynamic solution of the mathematical model, and thus allow students to familiarize themselves with the behavior of the modeled process, as well as compare it to the expected behavior of the real-world system. A structured approach to guiding the student through the often torturous path of modeling is to be developed in collaboration with the course instructors. The approach is to bring to the students an awareness and practice in (i) rationalizing the need for a model, (ii) setting objectives for the model within a problem's context, (iii) perceiving the cause-effect relationships, (iv) articulating the physics of the process, (v) stating representations of the phenomena, (vi) observing the behavioral characteristics of the model built, and (vii) using these characteristics for the resolution of the given problem. Such structured guidance is to be coordinated with the use of the modeling language and integrated within the scope of undergraduate core chemical engineering courses in such a way that the modeling task for the student is embedded within a problem needing solution, so that the problem's context and objectives are ma de clear. Significant components of the proposed work involve developing the individual modeling projects for use in the modeling language and redesign and translation of a prototype version of the modeling language for use on personal computers. It is expected that the completion of the proposed project will have a significant impact on the undergraduates' education since, (a) the student will be free to experiment and thus learn from immediate feedback of their errors, and (b) the understanding of the "foundation phenomena" will be reenforced through the contextual solution of non-trivial engineering problems. ***